Research Experiences for Undergraduates in Chemistry at Brown University

9400112 Estrup Brown University Dr. Peder J. Estrup and other members of the Chemistry Department of Brown University arebeing supported to continue a Research Experiences for Undergrauates (REU) site in Chemistry. For the period 1994-6, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-solid state, inorganic, organic, physical and biochemistry.